Science Exhibit Starter Sets

The Exploratorium seeks support for a program designed to help approximately twelve new or expanding U.S. museums acquire quality, educationally provern interactive exhibits. Over a thirty-six month period, two groups of museums will work with the Exploratorium to select and produce an individualized set of exhibits. The museums will dedicate staff to participate in the exhibit production process, as well as in the development of exhibit-based educational programs. The production cost of the exhibits will be shared on a fifty/fifty basis, with NSF's portion being matched by funds raised independently by the participating museums. Participant museums will be able to acquire stimulating and proven exhibits at half cost, and make use of the Exploratorium's exhibit construction shops, staff and other resources in developing educational programs and materials that complement their chosen exhibit set. It is expected that each participants will receive between fourteen and twenty-four exhibits. The program will repeat, to include another six institutions, in the second eighteen months. Participants will select exhibits in an initial one week visit to the Exploratorium and then return for a minimum four-week period to assist in producing their exhibits. Participation staff, through their involvement with construction, will become conversant with their exhibits' technical and operational aspects. The program will give participants true hands-on training. In addition to individualized assistance, each participant museum will receive publications about exhibit construction and use, as well as a booklet that includes technical, maintenance, and educational information about their own exhibits.